Workshop on Improving Undergraduate Fluid Mechanics to be held at the University of Michigan

Abstract
CTS-0094724
W. Schultz, University of Michigan

A novel method, by which the classroom instructor becomes the ally of the student in his/her preparation for examination questions provided by a consortium of faculty members (fluid dynamics) has been proposed. This workshop, and its follow-on efforts, has also gained the support of the DUE Program Directors. It is expected that the evolved structure can become a model for other undergraduate courses in the engineering sciences.